Moment-Resisting Seismic Connections for Structural Steel Frames

In this investigation an attempt at providing basic data on the behavior of joints of realistic size under simulated cyclic loading is made. Nine tests on full- and three-quarter size specimens, supplemented with three one-half size specimens, will be performed. The selected member sizes provide a wide spectrum of section geometries including those on which no previous U.S. work is reported. In seven of the proposed tests, the thickness of the column flanges and its effect on the panel zone doubler and continuity plates will be studied. Two tests will be conducted on beam-to-column web connections, the capacity of which is poorly defined. Three experiments on various length beam links connected to column webs for eccentrically braced frames will also be carried out. The experimental work will be accomplished by analysis with the objective of formulating design rules.